Support for Gaseous Electronics Conference GEC-2000

This award provides travel support for student participation in the Gasesous Electronics Conference-2000. Part of the student activity for the conference includes the award of the GEC Student Award for Excellence, which is given to the student for the best paper presentation.